Improving Accuracy and Precision of Marine Inorganic Carbon Measurements

Improving Accuracy and Precision of Marine Inorganic Carbon Measurements

The oceans absorb about one third of the CO2 humans release into the atmosphere from the burning of fossil fuels and other activities. While ocean uptake of CO2 slows its rate of increase in the atmosphere, it comes with costs for the oceans and the organisms that live there. Once in seawater, CO2 reacts with water to produce bicarbonate and hydrogen ions. The increase in hydrogen ions lowers the pH in a process called ocean acidification. Not all areas of the ocean are affected equally. The solubility of CO2 is greater in the cold waters of the Arctic making them more prone to ocean acidification. However, due to the low temperatures and low salinities in the Arctic, the uncertainties in pH values are much larger there than for the other oceans. This project evaluates pH at low temperatures and salinities, and develops best practice recommendations to improve the ability to compare measurements among laboratory groups and studies and reduce overall uncertainty in the measurements. The project provides training for an undergraduate student and promotes awareness of ocean acidification through public outreach.

Having highly accurate and precise measurements are important for monitoring changes to pH and CO2 uptake through time and the effects on marine life. In order to improve pH measurements for polar waters, several different experiments will be conducted. The temperature dependence of pH will be determined from 30˚C to near freezing for low salinity waters. The results will be compared to current chemical models to quantify offsets and biases. Recommendations will be made for the best physical chemical model to use for low temperature and salinity seawater. Moreover, pH is measured spectrophotometrically using an indicator dye. Preparation and calibration of the indictor is important to standardize studies across space and time and ensure comparability. Indicator quality is essential for detecting ocean acidification, but its stability is currently unknown. If the dye degrades after production, biases or artifacts in pH measurements may result as the dye ages. Experiments will be undertaken using batches of dyes from weeks to over 10 years old to resolve its degradation characteristics. The experiments will establish how long a batch of dye remains valid once it is prepared without biasing the measurements. This is particularly important for long term studies such as extended research expeditions and autonomous systems where a batch of dye may be used over a year. Together, by both investigating the validity of chemical models for seawater pH at low temperature and salinity and examining the stability of the pH indicator dye, methodological uncertainties can be reduced to permit better monitoring of changes in global ocean pH.